1992 West Coast Regional Developmental Biology Conference, April 30-May 3, 1992, Fallen Leaf Lake, CA

Partial support is requested to defray room and board costs for graduate students attending the 1992 West Coast Regional Developmental Biology Conference. The conference will be held on April 30-May 3 at the Stanford Sierra Camp, Fallen Leaf Lake, California. The program includes 25 speakers, reflecting as full a mix of gender, race and degree of professional advancement as is compatible with the primary criterion of scientific excellence. Topics to be addressed in the five formal sessions are as follows: 1) Regulatory Hierarchies, 2) Cell Polarity in Development, 3) Control of Cell Number, 4) Signal Transduction, and 5) Specification of Cell Fate. The conference will also include a keynote address to be given by Dr. Susan Bryant on the first evening. All attendeees will be encouraged to contribute to a formal poster session.